Research Experience for Undergraduate: Site in Experimental Psychology

This award provides funds to continue a Research Experiences for Undergraduates Site in Experimental Psychology at the University of South Carolina, Columbia. The eight week program will permit ten well qualified students majoring in a behavioral science to experience graduate level research. A major goal of the recruitment effort will be to involve undergraduates from underrepresented groups in basic psychological research, especially minority students and students from small institutions without major psychological laboratory facilities. Students will participate in experimental research including literature review, hypothesis generation, data collection, data organization, statistical analysis, and writing of papers. Student experiences will be enriched by weekly research seminars where assigned readings will be discussed, and by weekly sessions on problems of research design and statistics in experimental psychology. This award contributes to the Foundation's continuing efforts to attract talented students into careers in science through active undergraduate research experiences.